ITR: Interfaces for Supporting Over-The-Shoulder Learning

EIA-0081112
Twidale, Michael
University of Illinois at Urbana-Champaign

ITR: Interfaces for Supporting Over-The-Shoulder Learning

For many people, a key form of learning how to use software, for example,
is not by taking a training course, nor reading a manual or online help, or
experimenting with the software. Instead they may lean over the shoulder
of a colleague at work and ask for help. This over-the-shoulder-learning
(OTSL) is important to study to understand more about its relative
importance and the circumstances in which it is and is not successful.
Building on prior work studying informal collaborative help in libraries
and offices, the research will address how often OTSL occurs and its
significance as a way of learning, possible genres of OTSL, the evolution
of learning a software application over time, the resources people use to
support OTSL, barriers to OTSL as currently practiced, and the skills of
efficient help-giving and determining how these skills may best be taught.
This work will help determine the functionalities that have the greatest
potential for improving the effectiveness of OTSL and contribute to
fundamental research in user interface design and computer-supported
cooperative work and learning.